Bifurcations and Oscillations for Water Waves in an EnclosedBasin

This research project will develop the theory and application of the primary and secondary bifurcation of nonlinear oscillations of water waves in enclosed rectangular basins using perturbation methods, bifurcation theory, and other advanced mathematical techniques. The physical motivation is the "sloshing" problem, a phenomena of tremendous practical importance in liquid transport in trucks, rail cars, LNG & oil sea tankers, satellites, etc. The results indicate that explanation for the anomalous branches of solutions in the water wave problem are generic and may occur in many physical systems under particular symmetry conditions.